Gauge theory and low-dimensional topology

DMS-0125170
Paul M. N. Feehan

The principal goal of our research is to prove the celebrated
formula of Edward Witten (1994), relating the Donaldson and Seiberg-Witten series of smooth four-manifolds. Witten used
quantum field theory methods to derive his celebrated formula,
based on the concept of `duality', whereas the approach we
have been pursuing jointly with Thomas Leness is a mathematical
one, employing a moduli space of non-abelian monopoles as a
cobordism between links of Donaldson and Seiberg-Witten
moduli spaces. We have already partially verified Witten's
formula using this approach, showing that in many cases the
series agree up through terms of order depending only on
the topology of the four-manifold. We aim to build on
those results, by showing next that a relation between the
two series of the overall expected shape exists and then
applying auxiliary techniques to prove that his formula is
the only one possible. A second goal of our research is to
develop a proof of Witten's formula, in the special case of
symplectic four-manifolds equipped with Lefschetz fibrations,
and shed light on the relationship between Seiberg-Witten
invariants, Donaldson invariants, and the structure of Lefschetz fibrations. Ultimately, we also hope to explain the relationship between the mathematical and quantum field theory methods of
deriving Witten's formula.

Witten's formula, as understood by mathematicians, is part of a physical theory developed by Witten and Nathan Seiberg relating non-abelian Yang-Mills theory (a generalization of Maxwell's
theory of electromagnetics) and the simpler abelian Seiberg-Witten gauge field theories. In the physical world, quantum Yang-Mills theories provide a theoretical basis for describing elementary
particle interactions. In the mathematical world, beginning with
the work of Simon Donaldson in 1983, classical Yang-Mills and Seiberg-Witten gauge theories have played a fundamental role
in probing the geometry of four-dimensional spaces. String
theory is often cited by physicists as the most promising
candidate for a unification of quantum field theory (itself
is a unification of the electromagnetic, weak, and strong
forces) and Einstein's theory of gravity. Such a `grand
unified theory' would give a single theoretical framework
for explaining both short-range, high-energy elementary
particle interactions and the long-range gravitational force.
However, discovery of such a unified framework has eluded
physicists for nearly three-quarters of a century. Furthermore,
while Einstein's theory of gravity is founded on rigorous
mathematics, the goal of providing a mathematical foundation
for quantum field theory has not yet been realized. Most
physicists agree that particle accelerators of impossibly
large size would be needed to experimentally verify that
string theory is the `right' theory of nature. However,
while independent, mathematical verifications of quantum
field theory predictions can never replace experimental tests,
they may increase our confidence that quantum field theory
predictions are correct when experimental checks are impossible
with current technology. We hope that our project may serve as a
small step in such directions.